MRI: Acquisition of a Computational Mini-Grid Supercomputing Facility

EIA-0079734
Ligon, Walter B.
Clemson University

MRI: Acquisition of a Computational Mini-Grid Supercomputing Facility

The objective of this CISE/MRI proposal is to acquire computational equipment to support research in genomics, polymeric fibers and films, and high-performance computing systems. This enabling technology will be used to support programs in the Clemson University Genomics Institute, the Center for Advanced Engineering Fibers and Films, and the Parallel Architecture Research Laboratory. The requested equipment will help these three groups meet their current goals, increase their computational capacity, and permit expansion into new research areas. It will foster collaboration, interdisciplinary work, and integration of research and education.